Study of e+e- Interactions with CLEO II

This grant covers experimental Elementary Particle Physics research by a group at Vanderbilt University in collaboration with other NSF and DOE supported scientists. The group proposes to study electron-positron interactions with the CLEO II detector at the Cornell electron-positron colliding beam accelerator, CESR. These studies are the most productive studies in the world on the properties of bottom quarks. The properties of the third family of quarks in the Standard Model of quarks and leptons are almost entirely determined by the work of the CLEO group at Cornell.